SGER: A High Throughput Assay for Plant Peptide Growth Factors"

9706552 Sussman Plants contain an unknown compound that travels from the leaves to meristems and initiates flowering. The chemical nature of this so-called florigen has not been found, although the topic is around for more than 50 years. Indications are that it may be a peptide. As outlined by Dr. Sussman, he has a population of Arabidopsis which contain a marker protein expressed under control of an "early-flowering" promoter and he seems to be able to look in a titerplate assay for peptides fro a combinatorial peptide library for the one that induces this promoter. It is a dangerous experiment, but the rewards can be tremendous - both from a basic science viewpoint (there is only one other peptide "hormone" identified in plants), and from an application standpoint. Spray a peptide and induce flowering in the field simultaneously and earlier than nature would do it.